EAGER: Exploring silicon nitride for high speed electro-optic modulation

This project will explore whether we can develop a electro-optic silicon nitride that is compatible with
complementary metal oxide semiconductor (CMOS) fabrication. The ideal material for integrated
photonics is compatible with CMOS electronics, has a high refractive index, is deposited, electrooptically
active, and low loss; however, current photonic platforms fall short of meeting these
characteristics. While silicon has revolutionized photonics over the last two decades because of its high
refractive index and relative compatibility with CMOS electronics, the silicon photonic platform, which
uses the plasma dispersion effect for refractive index modulation, is fundamentally limited by carrier loss.
This fundamental loss limits the impact of silicon photonics in quantum information science, ultra-low
power communications, and chip-based LIDAR. Silicon nitride is a CMOS compatible material with high
refractive index and low loss; however, it is passive. Electro-optic silicon nitride (EO-SiN) has the
potential to completely change the field of integrated photonics. If successful, one can envision an EOSiN
platform for modulation, low loss guiding, switching, and nonlinear functionalities all integrated on a
single chip.
The proposed project will create a unique experience for one high school student from the Kearns Center
Upward Bound Program. The experience consists of a six-week internship during the summer. The
student will be immersed in the research group working on a project alongside other undergraduate,
master's and PhD students. The goal of this effort is to expose one first-generation, low-income high
school student to STEM fields to motivate them to follow a career in math, science, and engineering. The
students will receive an integrated mentorship from McNair fellows (undergraduate students), master's
students, PhD students, and the PI as they reinforce and discover the excitement of working in cutting
edge research.
Technical description
The PI proposes to explore whether we can engineer an electro-optic effect in silicon nitride using
electrical poling. As a proof-of-concept of the potential of electro-optic silicon nitride, we will
demonstrate a silicon nitride, on-chip, high-speed modulator. Understanding how to engineer an electrooptic
effect in silicon nitride will bring forward a high refractive index, low loss, deposited material with
CMOS compatibility and the ability to modulate the refractive index without inducing loss. It will clarify
the origin of previously observed second harmonic generation in silicon nitride, which is hypothesized to
come from either surface effects or the bulk properties of silicon nitride.